An Approach to Developing Analytical Potential Functions for Non-Covalent Interactions

Peter Kollman, School of Pharmacy, University of California San Francisco is supported by a grant from the Theoretical and Computational Chemistry Program to continue his research in the development of analytical potential functions for non-covalent interactions. This research is directed at developing and refining molecular mechanical models that accurately describe both the conformational equilibria and intermolecular interaction energies between molecules in molecular simulation calculations. New models for the electrostatic, van der Waals and non-additive energies will be assessed, making extensive use of accurate ab initio calculations to provide calibration. The models will be tested on condensed phase systems to enable comparison with experimental energies and structures. Applications of these models will be made to problems in molecular recognition. Kollman will attempt to determine, through free energy perturbation theory, binding constants for ionic binding to spherands, velcraplexes, carcerands, and to the adenine receptor. In recent years computer simulations have provided valuable insights into the detailed molecular dynamics of complex organic and biomolecular systems such as proteins. The quality of these simulations depend critically on the quality of the model potential functions used. A great deal of effort has been expended in developing more sophisticated analytical numerical models for the interaction energies between molecules. Kollman's research is directed at improving the quality of these molecular mechanics model potential functions used for performing simulations of complex organic and biomolecular systems.